Research Experiences for Undergraduates in Physics and Astronomy at the University of Toledo

An REU Site will be established at the University of Toledo, Department of Physics and Astronomy for eight out of twelve total supported undergraduate students. The students will be able to collaborate with departmental faculty in the fields of Astrophysics/Astronomy, Atomic/Molecular/-Optical, and Condensed Matter Physics. The NSF-REU program will enhance the departmental undergraduate research program, which has been in existence since 1988, by providing full time summer support for the students, as well as allowing non-Univ. of Toledo students to participate in the research.